Coherent Free Electron Radiation Sources

This research program is for study experimentally and theoretically of the coherent generation of electromagnetic radiation using electron beams as the lasing medium. The proposed major areas of activity are: (a) Research on short period wigglers (microwigglers); (b) Electron cyclotron maser (CARM) amplifier; (c) High efficiency, 35 GHz UBITRON; (d) Theoretical studies of free-electron laser mechanisms and novel accelerators. Studies under (a) are motivated by a desire to develop table-top size facilities operating at lower voltages. Studies under (b) and (c) are in part motivated by a desire for novel higher frequency, high power drivers for use in the next generation of RF LINAC's, with the view of increasing the acceleration gradients above those available at present. The theoretical studies under (d) will be tied closely to the experimental projects.